Numerical Algorithms for the Detection and Simulation of Surface Water Waves

The generation, propagation, and energetic transport of ocean waves
play a crucial role in many technologies including near-shore
watercraft navigation, the design of deep-sea oil-drilling rigs, and
the generation and propagation of tsunamis. However, the fundamental
technologies for the remote detection and measurement of these
nonlinear waves are based upon the scattering of linear acoustic or
electromagnetic radiation from the surface or bulk of the fluid. Not
surprisingly, the state-of-the-art in theory, approximation, and
numerical simulation of these two disparate wave phenomena is quite
different. In this proposal the Principal Investigator (PI) advocates
the development of a unified computational approach to these two
problems with the goal of producing a set of highly accurate, stable,
and error-controllable numerical algorithms for the detection,
simulation, and evaluation of waves on the surface of large bodies of
water. Over the past ten years the PI has developed a set of stable,
high-accuracy Boundary Perturbation (BP) algorithms for the study of
both traveling ocean waves and scattering returns from irregularly
shaped obstacles. These BP algorithms each involve an independent
perturbation parameter and the PI proposes to investigate a strategy
of coupling these two disparate algorithms by linking these
parameters, thus realizing huge computational savings. Additionally,
the PI proposes to significantly extend and improve existing BP
algorithms for the simulation of linear waves in the high-frequency
regime. In short, the Geometric Optics solution points the way to a
solution Ansatz which can be represented with a frequency-independent
number of unknowns. The PI, in collaboration with F. Reitich, has
demonstrated how this Ansatz coupled to classical BP methods can be
used to compute high-frequency scattering returns from shallow
surfaces with enormous computational savings. In this proposal the PI
advocates the further development of these algorithms to incorporate
the scenario of multiple reflections.

The generation and propagation properties of ocean waves are crucial
in many technologies including watercraft navigation, design of
deep-sea oil-drilling rigs, and the study of tsunamis. However, the
methods for the measurement of these nonlinear ocean waves are based
upon the scattering of linear acoustic or electromagnetic radiation.
The state-of-the-art in both the theory and practice of these two
disparate wave phenomena is quite different. In this proposal the
Principal Investigator (PI) advocates the development of a unified
approach to the computation of these two problems with the goal of
producing a set of reliable and accurate numerical algorithms for the
detection and simulation of ocean waves. This will involve the PI
bringing together two separate threads of his research program to
implement this unified approach. Additionally, he will need to expand
the capabilities of his algorithms to account for the highly
oscillatory character of the linear waves which arise in these
applications. The latter task will be particularly challenging and is
the current focus of a great deal of research by both civilian and
military agencies.